Thermo-Chemical Control of Secondary Metabolite Quality, Yield, and Production Rate: Synthesis of the PolysaccharideXanthan by the Bacterium Xanthomonas Campestris

Xanthan is an industrially used microbial biopolymer synthesized by the bacterium Xanthomonas campestris. Its usefulness derives from its unique physico-chemical properties when in low concentration aqueous solutions: high viscosity, recoverable shear-thinning behavior and synergistic gelation with polysaccharides. This project is aimed at improving thecost- effectiveness of xanthan by determining whether the optimum temperature and pH for quality (pyruvate content), yield, and production rate shift withsubstrate concentration in batch reactors. If shifts are found, the researchers will attempt to specify how the set points should be varied. The knowledge thus obtained can then be used for thermo-chemical control of all secondarymetabolite syntheses.